BAC: Neural Network Control of Oscillatory Movements of Multi-segmented Musculoskeletal Systems

This project will develop an artificial neural network control system for biped locomotion. The intended application is the restoration of locomotion in individuals with neuromotor impairments. The control system will specifically address the problem of adaptively controlling cyclic movements in multi- segmented systems using electrically stimulated muscles as actuators. Characteristic features of vertebrate neuromotor locomotion control systems will be incorporated into this neural network control system. This research is important since the results may be useful in Functional Neuromuscular Stimulation rehabilitative devices that provide electrically stimulated walking in spinal cord injury, stroke and head injury patients.